Electron Correlations and Properties of Metals and Insulators

9708499 Langreth The work of this senior and distinguished PI contains several related components. One of them is a density functional theory of long-range interaction between microscopic and mesoscopic bodies. Another looks at a theory of electronic dissipation, non-adiabatic charge transfer and potentials and rates for atoms and molecular species moving and reacting at a solid surface. A third component is an initial foray into the theory of transport in quantum dots using techniques previously developed by the PI for non-adiabatic charge transfer. %%% The work of this senior and distinguished PI is related to the properties of metals and insulators at a surface. The work explores the new physical phenomena which are seen as an electron, an atom or a molecular specie moves near a surface. These include very subtle, long range and technologically important questions of forces between small bodies and between a small grain and a surface. They include complex questions of charge transfer, when does it happen and how. Finally there are attempts to understand transport in very small metallic grains. ***